Chiral Auxiliary Mediated Acyclic Stereocontrol (Chemistry)

Many important biologically active compounds in nature contain atoms other than carbon and oxygen. Dr.Kurth's research,supported by this grant in the Organic and Macromolecular Chemistry Program, will provide new synthetic tools for the introduction with stereocontrol of atoms such as nitrogen and sulfur. These should be important in synthesis of some of the newer antibiotics. Research will be focused in three separate areas: I. Asymmetric ı3,3! sigmatropic rearrangement protocols: Catalysis of the aza-Claisen rearrangement will be investigated as well as the use of transient `control elements' which enhance transition-state differentiation in the aza-Claisen, and electronic modifications of the aza-heterocycle. Iterative aza- Claisen rearrangement and conjugate addition ı3,3! rearrangement protocols designed to set three contiguous stereocenters will be investigated as well as chiral auxiliary mediated tandem Claisen.Cope rearrangements which will provide high stereocontrol in C(y) asymmetric induction. II. Asymmetric olefin cyclization reactions: The lactonization of 1,6-heptadiene-4 carboxylic acids will be investigated as well as the hydrolysis products of iterative aza-Claisen rearrangements. The resulting substrates will possess 4 contiguous stereogenic centers. The stereo- and regioselective lactamization reactions of oxazolines will be investigated. The resulting lactams will possess from 2 to 4 stereogenic centers. The stereo- and regioselective olefin amination reactions of oxazolins will be investigated. III. Asymmetric ı2,3! sigmatropic rearrangement protocols: The preparation and S-allylation reactions of thioxanones will be studied as well as both inter- and intramolecular allylation protocols. A detailed study of the ı2,3! sigmatropic rearrangements of allylic sulfur ylids will be undertaken and a variety of functional group manipulations designed to exploit the latent functionality and stereochemistry of these ı2,3! rearrangement products will be explored.